Improving the Storage Conditions and Beginning Digitization of the Paleozoic Stratigraphic Fossil Collections at the Paleontological Research Institution

This project will upgrade the physical storage and begin the long-term process of digitizing the Paleozoic stratigraphic fossil collections at the Paleontological Research Institution, which are currently in danger of physical deterioriation and data loss due to inadequate storage and lack of digitization. The Carl Brett and Gordon Baird Devonian collection will be upgraded to the highest curatorial standards and its associated data digitized and made more widely known and available online to the research community and general public. This collection documents the unique invertebrate fossil record of the Devonian, ~418 to 358 million years ago, of the northeastern United States, particularly New York, which is widely regarded as one of the most stratigraphically complete in the world. The project will greatly increase the accessibility and discoverability of these collections for studying a variety of important paleobiological topics, including: 1) community-level stasis and change, 2) niche evolution in response to major sea-level/ climatic change and invasion of new species, 3) morphological stasis, and 4) environmental change and evolution/ extinction of marine biotas. The project has two broader impact components: 1) construction of an online field guide to common New York fossils, and 2) development of a series of educational videos. These complementary resources will highlight both the geologic context and diversity of invertebrate fossils in the Brett and Baird Devonian collection.

To ensure that the considerable research and educational value of the Brett and Baird Devonian collection is realized, this project will 1) upgrade the physical storage of the ~4,000 invertebrate fossil assemblage samples in the collection by moving them to a newly renovated climate-controlled facility, and 2) encourage use of the collection by digitizing and sharing records publicly online via data aggregators, such as the System for Earth Sample Registration and iDigBio. The project will also provide value-added geo-referenced data to the estimated 2,500 localities in the collection. Beyond improving the storage conditions and accessibility of the collection, this project will build on the Paleontological Research Institution’s strong history in developing free, online educational resources about paleontology and the fossil record. Specific outreach activities include creating a collection of five short (3-5 minute) videos with closed captioning for the public that will highlight the Brett and Baird Devonian collection. This series will be called “From the Field to the Cloud” and will detail the journey of an individual fossil as it travels through the steps from first discovery, to curation, to its final online representation in a publicly accessible online database. A new Devonian Atlas of Ancient Life will also be developed featuring at least 200 commonly encountered species from the Devonian fossil record of New York to help everyone from avocational collectors to museum professionals identify and learn more about fossils from the state.